Seventh European Set Theory Conference

This grant will support US based participants at the European Set Theory Conference that will be held in Vienna, July 1-5, 2019. This is the seventh in a biennial series of conferences that are organized by the European Set Theory Society, and are endorsed by the Association of Symbolic Logic. The meetings provide an international meeting place for junior and senior researchers around the world to interact. More details of the conference can be found at:

https://sites.google.com/view/estc2019/home